U.S.-New Zealand Cooperative Research: The PANDA Seismic Array - Implementation of a Seismological Study

This award will enable collaborative research between Drs. Jer-Ming Chiu and Steven Wesnousky of the Center for Earthquake Research at Memphis State University, Dr. Bryan Isacks of Cornell University, and Dr. Terry Webb of the Geophysics Division of the Department of Scientific and Industrial Research, New Zealand. Drs. Chiu, Wesnousky and Isacks will meet with scientists in New Zealand to coordinate preparations for the deployment of a portable seismic array designed for numerical data aquisition (PANDA). Plans will be made to deploy the seismic array on the North Island of New Zealand in order to determine the structure of crust and mantle material within an active island-arc subduction zone. The north Island of New Zealand presents unique geographic characteristics. Deployment of the PANDA array in this region would yield abundant seismic data which bear directly upon questions related to mechanical behavior of earthquake faults, seismic hazard, imaging of magma bodies in the shallow crust, and the effect of site response on the amplitude and frequency content of short-period seismograms.